A Proposal for Research in Waves in Random Media and Applications

Papanicolaou
9971972
The goal of this project is to develop and use analytical
and computational methods for geophysical wave propagation. The
investigator and his colleagues have developed two general
theories: one based around radiative transport for elastic wave
propagation in the crustal waveguide, and the other based on
waves in nearly layered random media. The mathematical issues
involved in radiative transfer are (i) the derivation of boundary
conditions (ii) the introduction and use of good Monte Carlo
methods (iii) the solution of realistic inverse problems for
parameter identification. In the case of nearly layered media an
important mathematical issue is the robustness of wave
localization, known to hold for perfectly layered random media.
Another direction of study is the assessment of the effect of
random inhomogeneities on time reversal imaging, called wave
migration in geophysics. The mathematical analysis requires time
domain statistics for time reversed pulses, which have to be
constructed by Fourier analysis. Theoretical explanations are
provided for the increased resolution in time reversal imaging
due to the inhomogeneities.
Geophysical wave propagation, the propagation of seismic
waves in the earth's crust for example, requires mathematical
modeling at several levels depending on the accuracy and the
resolution required. It is impossible to simulate numerically
seismic wave propagation over a few hundreds of kilometers of the
earth's crust while taking into account the detailed
inhomogeneities in the earth's crust. Radiative transport theory
can be used very effectively and at much lower computational
cost, and it can provide estimates for the codas (tails) of
seismograms with enough accuracy to interpret and analyze many
continental seismic events. The project provides the mathematical
methodology and infrastructure for using radiative transport in
geophysical problems. The investigator looks carefully at what is
needed to deal with discontinuities and interfaces in the crustal
environment, what is needed for large scale imaging from surface
seismic measurements, what is needed for assessing the waveguide
effects that appear in long distance seismic wave propagation,
and what is needed for the effective numerical simulation of long
distance seismic wave propagation.